A Systematic Repository of Conflict Management Expertise for Collaborative Design

There is a wide gap in current knowledge about the types of conflict, conflict management strategies, and how management strategies are best linked to particular conflicts. Existing knowledge in this area has not been systematized or made formal and computational. This gap has significant practical impact, particularly in the important domain of collaborative design and concurrent engineering. Complex manufactured goods and software are increasingly designed using large-scale collaborative processes. Current, mainly manual, conflict management practices are being overwhelmed by the sheer scale and complexity of modern-day design challenges, leading to severe impacts on cost, timeliness, and effectiveness of product designs. This research will develop, within the MIT Process handbook, a formally represented, publicly accessible repository of conflict management knowledge organized in a way that helps reveal building blocks, key dimensions and regularities, and thereby (2) facilitates important uses such as learning about conflict management and developing general theories of multi-agent conflicts and exceptions. This work makes important intellectual and practical contributions---it will be a key building block for better computational algorithms for managing exceptions (including conflicts) in collaborative work. The repository itself will help researchers carry on a more cumulative ans systematic exploration of the phenomena. http://ccs.mit.edu/klein.html